Science for Science Teachers

Science for Science Teachers features a four-week summer institute for 50 underprepared middle school/junior high school science teachers. The topics to be treated are representative of all the major science disciplines. There is a strong emphasis on laboratory experiences. The staff of the project include university research scientists and high school science teachers, all of whom have participated in similar programs during three previous years. Distinguished guest lecturers are used frequently. Instructional materials, both reading matter and laboratory apparatus, have been developed and tested in earlier years and are now available for use during the 1988 summer institute and in the classrooms of participants in subsequent years. The participants are drawn from all parts of the United States. They maintain contacts with each other and with project staff through newsletters and reunions that are arranged in connection with National Science Teachers Association meetings. Strong group rapport has been characteristic of this project in previous years. Costs of the project are shared by the Lawrence Hall of Science and the participants' home institutions. These contributions total 8% of the amount invested by the National Science Foundation.